Equipment: University of Hawaii R/V Kilo Moana Oceanographic Instrumentation

Kilo Moana is a 186-foot, general-purpose research vessel built in 2002 and operated by the University of Hawaii under a charter party agreement with the Office of Naval Research (ONR). The vessel is part of the US Academic Research Fleet (ARF) and is supported by the University-National Oceanographic Laboratory System (UNOLS). Ship time is made available to academic researchers funded by the NSF, ONR, NOAA, NASA, and other federal and state agencies.

The University of Hawaii requests funds for purchase of the following Oceanographic Instrumentation:

Reverse Osmosis/ Ultrapure Scientific Water System $23,576
OTDR/Copper Network Tester $19,746
Overboard Handling System (OHS) Proof Load Test Kit $18,557
Hydrostatic Wire Cutter (2) $6,000 (not funded)
Funded total $61,879

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 19-602). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.